Global Analysis on Complete Kahler Manifolds

Abstract

Award: DMS-9970284
Principal Investigator: Lei Ni

The principal investigator propose to study the interplay between
geometry and analysis on complete Kahler manifolds. The focus
will be the linear and nonlinear analysis on complete Kahler
manifolds under various curvature conditions. The main goal is to
understand the spaces of holomorphic functions (and sections of
certain holomorphic bundles) on complete Kahler manifolds under
various curvature assumptions and apply the properties of these
various spaces to the study of the geometry and topology of
complete Kahler manifolds with various curvature conditions, in
particular, the uniformization of complete Kahler manifolds with
positive bisectional curvature.

The subject of the PI's investigation belongs to fields called
differential geometry and global analysis on
manifolds. Differential geometry is the study of the relationship
between the geometry of a space (a manifold in the language of
differential geometry) and analytic concepts defined on the
space. Global analysis is the study of the overall geometric and
topological properties of a space by piecing together local
information. Since the space is usually a curved space, the term
``curvature'' is introduced to measure the deviation from the
Euclidean space, which is flat. Applications of these areas of
mathematics in other sciences include the structure of
complicated molecules, liquid-gas boundaries, and the large scale
structure of the universe. A Kahler manifold is a complex space
which has an extra structure called Kahler structure. The
geometric and analytic properties of Kahler manifolds are
important to various fields of mathematics and physics such as
low dimensional topology, algebraic geometry and superstring
theory.